California Scope Sequence Coordination: A Model of StatewideLeadership and Support

The California State Board of Education in collaboration with The California State University is attempting to bring about large-scale changes in grades 7-12 science education in the state by implementing the NSTA Scope, Sequence, and Coordination model. Under a grant from the U.S. Department of Education, 100 middle and secondary schools in California have already received planning grants to begin this project to replace the traditional "layer cake" approach to the teaching of biology, chemistry, and physics with a "spaced" approach which spreads the teaching of the sciences over six years and which moves the emphasis on teaching from the concrete to the abstract over this period of time. Cost sharing of $276,619 is 14% of the NSF contribution to this project.